NeXT Workstation Laboratory for Undergraduate Electromagnetics

We propose to create a next workstation laboratory to complement the two-semester, junior level sequence in electromagnetics required to all electrical engineering majors. Initially, the laboratory would be an optional part of the courses, with perhaps a few homework assignments requiring use of the laboratory. However, the goal would be to eventually integrate the laboratory into the coursework in a more substantive role. To accomplish our objective we have already begun developing an interactive software package. The programs developed are collective know as EM Notebooks. To create the Noteboooks, a powerful software language called Mathematica is used. Mathematica has a feature that can be used to hierarchically structure text, equations, and graphics. Thus, the EM Notebooks contain animated sequences of EM phenomena such as waves propagating in a waveguide, and the user can interactively change parameter, such as frequency, with the moving picture altering in response.